Optical Trapping of Latex Immunoassay Particles for Clinical Diagnosis

This Small Business Innovation Research Phase I project is to develop a novel method for bioagent immobilization since the bottleneck of nanotechnology is the ability to immobilize proteins or biomolecules on the micro-or nanometer scale. Physical Optics corporation (POC) proposes to utilize the optical trapping of latex particles for immunoassay applications. The novelty of the proposed concept is to apply particle trapping capabilities in order to manipulate and deposit single or plural latex particles (coated with a reagent) for clinical or biomedical sensing applications. By doing this, a single antibody-coated particle (0.1 - 10 micrograms in diameter) can itself become an immunosensor. For a group of particles, a laser device with a scanning mechanism can rapidly align and organize a group of particles into any desired spatial pattern and dimension. As a result of this well-defined deposition technique, microsensing elements can be fabricated with extreme accuracy, sensitivity, and high multiplexity.